MRSEC Lens of the Market

The National Collegiate Inventors and Innovators Alliance proposes to conduct two "Lens of the Market workshops" (LOM) designed to provide science and engineering faculty, post docs and students with an introductory yet comprehensive core body of information, vocabulary and know-how needed for successful research to innovation translation all focused on and aligned to the research being conducted by the Center and its researchers. LOM eworkshops will mphasize the research of the Center and utilize aligned technical examples for addressing translation components known to be important for research translation success relevant to the interests of the Center. The workshops will serve as the basis for unique translation plans to be developed by each Center based on their research. Lens of the Market Workshops have covered a wide range of materials,chemistry and engineering critical research topics.